Mathematical Sciences: Studies in Random Walks

The principal investigator will continue his work on the structure of random walk paths in two and three dimensions. The particular objects of interest are critical exponents for these walks: the intersection exponent, which measures the probability that two independent walks intersect; the chemical exponent, which measures the length of the shortest subpath between two points; the resistance exponent; the loop-erasing exponent, which measures the length of a path derived from erasing loop chronologically; and exponents related to the behavior of a particle diffusing on a random walk path. The investigator will also study clusters formed from random walk dynamics. The principal investigator will continue his work on the fractal-like structure of random walk paths in two and three dimensions. This is an area of probability theory that draws heavily on heuristic models in physics and chemistry for motivation. Results in this area will impact both the probability community and the theoretical physics community. One object of interest is the intersection exponent of a random walk, which measures the probability that two independent walks intersect.